Advanced Materials Specimen Preparation Facility

9512362 Zavaliangos This Academic Research Infrastructure (Instrumentation) Award is to assist in the purchase of several components of an automated specimen preparation facility for mechanical and metallurgical testing. This equipment will greatly improve the testing efficiency and quality in the area of processing-structure-property relationships by permitting changes in the microstructure to be accurately measured. It will be used both in research and in senior design projects. It will be used for metals, polymers, ceramic and composite type materials. ***